Teacher Enhancement at "Supercomputing '94"

9453207 Ziebarth Teacher Enhancement at Supercomputing '94 IEEE This conference proposal brings a total of 160 teachers, 41 of whom are directly funded through this award, from across the country to the Supercomputing '94 in Washington, DC for three days if pre-conference workshop. The first two-days include hands-on workshops, presentations and demonstrations by experts as well as teachers in currently successful high school supercomputing programs. Teachers also have full registration for Supercomputing '94 included with the workshop so they can visit the exhibits, poster session, and special presentations at the conference. Cost sharing is provided for administrative costs to IEEE by the Computer Society, one of the member societies of the IEEE, and for hardware rental. Cost sharing is 40%.